Investigation of Arc Processes: Relationships Between Orogeny, Mountain Building, and the Role of Crustal Anistropy in the Peninsular Ranges Batholith, Baja Californi

9614682 Paterson Convergent boundaries between tectonic plates involve such processes as crustal deformation metamorphism and magmatism. The surficial counterparts to these internal processes include volcanism, high average elevation, topographic relief and rapid exhumation, but the connections between these surficial processes and the internal orogenic processes are enigmatic. This project will address linked processes between orogeny and mountain building in a continental margin that has experienced a multifaceted tectonic history. The Peninsular Ranges Baja California offers a well exposed set of tectonic assemblages within a manageable area that holds considerable promise for better understanding the connection between surface manifestation and internal orogenic processes.